Multiple Scattering, Space-Time Interferometry, and Imaging in Random Media

Basic research activities are proposed to develop analytical combined with numerical and experimental approaches to the study of wave propagation through random media. Optical, acoustical, and micro- waves propagating through random media experience random fluctuations and these interactions between the waves and the scattering media affect a broad range of sensing problems. Random media are common to many materials systems: snow, fog, atmospheric turbulence, vegetation, and biological systems. The proposed research is fundamental in nature and general in applicability. The proposed research focuses on development of multiple scattering theories as applied to generalized space-time interferometry and imaging in random media. Four topic areas are proposed for investigation: (1) Ultra-wideband scattering by random media (2) Angular memory signature and generalized polarization signature (3) Enhanced backscattering with emphasis on clarifying the relationship between volume and surface scattering especially when particle sizes are in the resonant region. and (4) Imaging of objec ts in random media. Possible synergism exists within the above topic areas.